Replacement and Renovation of Laboratories for the Committee on Bio-Psychology

The Committee on biopsychology at the University of Chicago spans the Division of Social and biological Sciences and has provided national leadership for the discipline since its inception. The Committee studies behavior and its bi- directional interaction with neural and endocrine mechanisms and its ecological and evolutionary context. The strength of the committee derives from bringing all three levels of analysis together as an integrated system, including mental processes and integrative physiological systems other than the brain. This degree granting Committee is unique in the nation because it combines the biopsychology of humans with the biopsychology of animals. The University of Chicago is the only university to provide both graduate and undergraduate training in behavioral neuroscience and endocrinology and this award enables them to renovate their research and research training space in this important research area.